Teacher Recruitment Inititative in Physics and Chemistry

Two-year scholarships are being provided to thirty-two science and engineering students majoring in fields that may lead to either chemistry or physics certification. The students will be receiving annual $10,000 scholarships during their senior year and subsequent enrollment in the fifteen month chemistry and physics Master of Arts Teaching program.
The project is serving as a model for two institutions of distinctly different cultures (one a university with a strong education school, the other a technological university) to join forces to create an exemplary program that is producing effective grades 6 - 12 chemistry and physics teachers. Project features include the initiation of a twelve credit hour educational course sequence at Georgia Institute of Technology, the close working relationships of the universities with school systems serving the greater Atlanta area, and the K-12 teaching experience of the science education faculty.